Americas Program: Responses of Red Mangrove to Long-Term Chronic Petroleum Contamination

9420164 Klekowski This Americas Program award will fund a research collaboration between Dr. Edward Klekowski, University of Massachusetts Amherst , and Dr. Avril-Siung-Chang, Institute of Marine Affairs, Trinidad -Tobago, West Indies. They propose to survey, genetically and chemically, selected mangrove populations in Trinidad, to determine if there is a correlation between sediment contamination by chemically identified pollutants and enhanced mutation in the indigenous mangrove forests. The work is an extension of previous studies done in Puerto Rico by Dr. Klekowsky. The research focuses on a an easily observed small subset of mutation , albino propagules, with the purpose of extrapolating the results to the rest of the gnome. The study will be divided into three parts: genetics, sediment chemistry and pigment fingerprinting. The University of Massachusetts will be responsible for the population sampling, mutation rate measurements and the final data analysis. The group from the Institute of Marine Affairs, Trinidad, will be collecting sediment cores from the mangrove populations and will do the chemical analysis for the core samples for petroleum related compounds. The pigment fingerprinting will be done by the Department of Marine Science, University of P.R. Mangrove forests are a widespread ecosystem in the tropics with unique features at the interface of land and sea, and form a protective buffer that cushions against tropical storm surges. They are an important forestry resource in certain areas and are often nursery areas for commercially important fish species. Basic information on their component species and how they respond to stress, will be needed to develop appropriate conservation or restoration programs and will help focus attention on the long-term consequences of petroleum-related environmental pollution. Trinidad offers a unique site for this study with its combination of both controlled uncontaminated mangrove h abitats as well as habitats that have been chronically contaminated by petroleum for decades. ***